Investigations in the Microscopic Theory of Nuclear Structures and Reactions

This award supports theoretical research on reactions involving few-body nuclei at intermediate energies. This includes continuing work on meson photo-production, inelastic electron scattering, and studies to test hyperon-nucleon interactions. This work will be supportive of on-going and planned electron scattering experiments at Bates and CEBAF.